Minority Postdoctoral Research Fellowship

Vazquez 9308030 This applicant will extend experimentally his earlier descriptive work of avian wing evolution which led to the hypothesis that fore-limb coordination in flying birds is automatic. The complex and coordinated pattern of extension and flexion necessary in the wing during powered flight may occur involuntarily as a result of the structure of the forelimb joints and musculature. Such a mechanized wing offers an elegant explanation of how a fledging successfully flies in its first attempt, and the unfailing coordination of the avian wing during flight. It would represent a key adaptation in the evolution of powered flight. This work will be conducted in the laboratory of Dr. G. E. Goslow, Jr., at Brown University. *** = 8=9=:=;=<===>=?=@=A=B=C=D=E=F= H=I=J=K= M=N= P=Q=R= T=U=V=W=X=Y=Z= =\= =^=_=`=a=b=c=d=e=f=g=h=i=j=k=l=m=n=o=p=q=r=s=t=u=v= x=y=z={=|=}=~= = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = = =Vazquez 9308030 This applicant will extend experimentally his earlier descriptive work of avian wing evolution which led to th k f k ! ! F k k ( Times New Roman Symbol & Arial g g g " h *b %*b % u b Ricardo Vazquez Postdoc abstract Antoinette Sullivan, BIR Antoinette Sullivan, BIR